CAREER: Assessment and Control of Motor Vehicle Emissions

9623385 Harley Because motor vehicles are the largest contributor to air pollution in most U.S. cities, improved control equipment is required on all new cars and trucks, and reformulated clean- burning fuels are required for older vehicles in order to achieve immediate emission reductions. To address motor vehicle emission problems, the research will: (1) develop new, accurate inventories of motor vehicle emissions; (2) study the causes of excess vehicle emissions; (3) develop and use mathematical models to study the formation of photochemical air pollution; and (4) determine the effects of reformulated gasoline on ambient concentrations of ozone and other air pollutants. An alternate approach to calculating emissions will be developed using infrared remote sensing measurements of emissions from thousands of in-use vehicles. Measurements of vehicle emissions under various operating conditions will be used to assess the robustness of emission control systems. In addition, the frequency of emission control system failures will be studied as a function of vehicle age. The air quality impacts of various technological approaches to controlling vehicle emissions will then be compared. An Eulerian photochemical air quality model will be developed to assess the impact of motor vehicle emissions on ozone. The chemical mechanism in the air quality model will be extended to include the reactions of relevant oxygenated compounds such as methyl-butyl ether (NME) which are required in reformulated gasoline. Performance of the air quality model will be verified using measurements from historical air pollution episodes in the San Francisco air basin. The air quality model will then be used to predict changes in ozone formation due to use of reformulated gasoline. Novel approaches to control of vehicle emissions will be assessed and compared. The proposed educational plan has the following objectives: (1) to develop and teach new environmental engineering lecture courses; (2) to develop and test new experiments to be included in a new environmental engineering lab class; and (3) to encourage minority students in local schools to apply to college-level science and engineering programs.